Dynamic Simulation Software for Biologists

In recent years, complex biological problems are increasingly analyzed using computer simulation models. Unfortunately, the development and application of these simulations are too often beyond the reach of experimental biologists, most of whom have neither the background nor the time to devote to mastering conventional simulation tools. This proposal addresses the problem of making simulation accessible to biological scientists. Software development is proposed that is intuitive, easily accessible to the novice within a few hours, and sufficiently powerful to develop innovative, state of the art simulations. The objective is to provide the tools for both researchers and students of biology that will be: 1. Designed specifically to handle biological problems. 2. Intuitive and easy to learn and use by scientists with limited mathematical or computer experience. 3. Sufficiently flexible to handle a wide variety of problems. 4. Sufficiently powerful to tackle current problems in the research literature. 5. Sufficiently flexible to allow teachers to design their own simulation exercises and interfaces according to their own experience and tastes. These objectives will be accomplished with software that contains an intuitive graphical interface designed specifically for constructing biological models and solving them very quickly. It will also contain a convenient output display that is conducive to exploring model parameters, curve fitting model results to empirical data, and plotting results in different modes (e.g. run time, batch, overlay, strip chart, triggered oscilloscope, 2 or 3 dimensions, phase p lane, iso- and nullclines). The software will contain modern algorithms for solving stiff systems of ordinary differential and difference equations, initial and boundary value problems, partial differential equations, root finders, location of bifurcations, optimization, and stochastic problems. In many cases these mathematical techniques will be invisible to the inexperienced user, but will be available to the more advanced worker.